Upgrade of Undergraduate Biotechnology Laboratory

9451479 Perlin A Biotechnology Methods course for undergraduates prepares students to conduct Undergraduate Research projects which are not associated with a specified course and thus serves to enhance undergraduate research experiences at the University. This facility serves as the basis for instruction in this newly-developed course and also facilitates the use of such technology for existing courses and several summer research programs. The summer programs serve Minority high school